InfoFabric: Adaptive Services in Distributed Embedded Systems

Schwan, Karsten
CCR-0208953
"InfoFabric: Adaptive Services in Distributed Embedded Systems" This research is developing
"Infofabric" services to manage multiple shared data streams and enable high performance sensing and
communication in dynamically reconfigurable sensor nets. For example, in emergency response
applications, the computing infrastructures employed are rapidly assembled conglomerates of portable and
handheld end user devices. Multiple communication modes are used to interact across collaborating peers
and also with local and remote command centers and/or information repositories. A key problem is that
such devices typically cannot access, display, and manipulate information with the quality needed by end
users. An example is an observer `in the field' trying to match visible cloud formations with the
outputs produced by remotely running weather simulations, the latter using real-time radar data. Unless the
handheld device can visualize data with high quality and in real-time, field observations cannot be used to
refine or steer the remote weather prediction programs. Similarly, search and rescue operations can be
aided by rich (multi-media), real-time communications between team members and by high fidelity
graphical displays of terrain data available from remote servers.
The basic technical problems to be solved for the resulting complex, distributed and embedded applications
include (1) the provision of high levels of flexibility in how, where, and when necessary processing and
communication actions are performed on the underlying distributed platforms, and (2) the ability to
continuously meet end user needs despite runtime variations in service locations, platform
capabilities (e.g., remaining power on end devices), and user requirements. The `InfoFabric' approach
supports data-intensive, embedded applications with lightweight publish/subscribe middleware. An end
user dynamically subscribes to information channels when needed, and the InfoFabric applies the
processing specified by the user. Processing and communication actions are dynamically mapped to the
underlying distributed devices and machines. To attain high performance and meet embedded systems
requirements like such as power, new compiler and runtime binary code generation methods dynamically
generate and install code on the InfoFabric's platform. Code is specialized to match current user needs to
available platform resources. To meet dynamic needs and deal with runtime changes in resource
availability, resource management mechanisms associated with middleware carry the performance,
usage, and needs information required for runtime adaptation of processing and communication actions. Because the InfoFabric middleware has detailed knowledge of the ways in which information should be transported and manipulated before delivering it to end users, it can employ techniques like automatic
redundancy and replication, and service (re)location and (re)partitioning to match changing user needs and platform availabilities.